Laser Raman Microprobe Spectroscopy, Molecular Dynamics Simulation and Tribology of Boundary-Lubricated Solid Surfaces

9114783 Saka A Study of the nature of boundary lubricant films will be undertaken by a combination of laser Raman microprobe spectroscopy of wearing surfaces, friction and wear experiments, and molecular dynamic simulations of the lubricant-solid interface. The Raman spectra will be used to determine coverage, orientation, and structural stability of the molecules over a wide range of normal pressures and temperatures and the results will be used as input to the molecular dynamics model. The configuration of the lubricant macromolecules that lead to a stable boundary lubricant film will be determined and visualized. ***